Comparative Floral Ontogenetic Studies in Legumes

Dr. Shirley Tucker of Louisiana State University will continue her anatomical and morphological studies of patterns of flower development in tropical legumes, using methods of light and scanning electron microscopy. She is studying several taxa in the subfamily Caesalpinioideae because her preliminary work shows that the group is unusually varied in floral ontogeny, and includes genera with primitive helical patterns of development as well as more specialized types of unidirectional formation. In addition to documenting intermediate stages between these two types, Dr. Tucker will determine whether unusual floral features (such as unisexuality, heteromorphy, or nonradial symmetry) result from changes early in development or represent terminal additions to ontogenetic sequences. Another line of investigation involves determining the consequences of organ loss (for example, loss of petals or of stamens) and organ-suppression (formation of primordial cells followed by abortion) in various lineages of legumes. Floral characters are critical in taxonomic classification of legumes and in phylogenetic analysis of their affinities, and the developmental data acquired in this research will permit rigorous test of the homology of comparable features throughout the legume family.